Implementation of the Strategic Plan of the Southern Technology Council

The Southern Technology Council is taking a necessary first step toward implementing the recommendations set forth in its report Turning to Technology, a long-range strategic plan for strengthe- ning the S&T capabilities of the South. The necessary first step is to bring the plan to the attention of state legislators and representatives of relevant organizations throughout the South. The Council proposes to do this through one day symposia that will be highly publicized. The symposia will relate the strategic plan to state-specific needs and conditions, stimulate consideration and discussions of priorities, and will prompt the formation of permanent planning mechanisms and legislative structures for state S&T policy.